Equipment: MRI: Track 1 Acquisition of a Mass Photometry system at James Madison University

An award is made to James Madison University to fund the acquisition of a Refeyn TwoMP mass photometer with a microfluidics system. Proteins and other biological molecules rarely work alone. Instead, they form complexes with other biological molecules to carry out the functions that sustain life, including regulating metabolism, defending against infection, and controlling gene expression. Understanding which molecules interact and how their interactions impact cellular function is a fundamental property that can be harnessed to develop new pharmaceuticals to improve human health, optimize food production in plants, and support many other biotechnological applications. The TwoMP mass photometry system will support fundamental research in plant metabolism, energy transfer, and human health by expanding access to a cutting-edge method for assessing molecular size. The instrument will serve several departments at James Madison University, as well as multiple institutions of higher education in Virginia and Maryland. Additionally, it will support the wider research community of the enzyme malate dehydrogenase (MDH) CUREs Community, a group of faculty members who offer Course-based Undergraduate Research Experiences (CUREs) to undergraduate students. This group comprises community colleges, primarily undergraduate institutions, and research institutions, and annually provides research experiences to hundreds of undergraduate students from across the US. The TwoMP mass photometry system is not yet widely available in undergraduate academic settings but is increasingly used in industrial and pharmaceutical sectors. The instrument to be housed at James Madison University is expected to provide experience and workforce preparation to over 100 undergraduate students annually from across the country. The proposal aligns with NSF priorities in biotechnology and quantum information science, while strengthening the STEM workforce development through undergraduate training.

The TwoMP mass photometry system will be crucial for research projects exploring conserved regulatory mechanisms in biology and chemistry at several primarily undergraduate institutions and research-focused institutions. The instrument enables the measurement of molecular masses in solution with mixed populations, which makes it broadly useful for projects across many fields of biotechnology, human health, and agriculture. The mass photometer further provides the opportunity to develop novel methods, such as label-free, long-chain carbohydrate binding to proteins, an underexplored area with the potential to impact many areas of health, pharmaceuticals, materials, and energy. Building on this methodology for detecting carbohydrate-protein interactions will lead to a deeper understanding of how pseudoenzymes regulate amylase-mediated starch degradation. The mass photometer will further provide new insights into human metabolon formation within the tricarboxylic acid (TCA) cycle, and the regulation of these essential complexes by post-translational modifications and ligand binding. It will also advance studies of electron transfer protein complexes, which may lead to insights into energy storage, protein aggregation in inflammation associated with cancers and the immune system, protein-DNA formation during eye development, and ubiquitin chain regulation of RNA metabolism. This instrument is expected to improve current research workflows and analysis, fostering collaboration across disciplines, and provide undergraduates with access to an advance approach for biophysical characterization of molecules.